Tulane University High Performance Connection to vBNS

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in biomedical engineering, computational science in biomedical systems, physics and medical informatics. Collaborating institutions include the National Center for Supercomputing Applications, Duke University, University of Alabama at Birmingham, Louisiana State University, Washington State University, University of Utah, Northwestern University and the University of Florida.